ROW: Pleistocene Thermohaline Circulation and Ocean Carbon Budget Changes

The PIs propose to generate a high resolution benthic oxygen and carbon isotopic stratigraphy for ODP Site 644 in the Atlantic and a Cd/Ca stratigraphy for Site 677 in equatorial Pacific to obtain a long-term record of the fluctuations and trends in North Atlantic Deep Water production and changes in marine carbon cycle. The study will test whether there is a link between changes in deep water circulation and global climate on a longer time scale of 100,000 to a milion years.